Collaborative Research: Symbolic Computations in Algebra and Topology

Suciu
This is a collaborative project between Henry Schenck and
Alexandru Suciu. The investigators study the interplay between
the topology of a manifold X and certain algebraic structures
related to X. From a theoretical standpoint, such an undertaking
involves a mainstream question of algebra, geometry, and
topology: how geometric, topological, or combinatorial aspects of
a manifold manifest in algebraic properties of objects such as
the cohomology ring, fundamental group, and resonance varieties.
The focus is on the case where X is the complement of an
arrangement of lines or rational curves in the projective plane,
or a configuration space. The investigators develop a software
package of algorithms to study the aforementioned algebraic
invariants of X. The software is used to generate tables of
arrangements (similar to the tables used in knot theory),
providing an extensive list of examples and invariants. The
investigators use these tables to search for counterexamples to
open conjectures, and to spot patterns leading to theorems. The
tables and code are a community resource, available online, and
generate considerable synergy between disparate groups
(algebraists, topologists, combinatorialists) involved in MSRI's
special semester on hyperplane arrangements (Fall 2004).
There is also a practical benefit: hyperplane arrangements
and configuration spaces are ubiquitous in pure and applied
mathematics, arising in numerous areas including braid groups,
knot theory, robotics, approximation theory, and mathematical
modelling. For example, in approximation theory one can
approximate a function of several variables, say k of them in a
k-dimensional region, by dividing the region into pieces and on
each piece approximating the function by polynomials; the
resulting piecewise polynomials are called splines. Technically,
the region is divided into simplices using hyperplanes; the set
of splines on the resulting simplicial complex is an algebraic
object that depends strongly on the geometry of the chosen
hyperplanes. In robotics, arrangements arise in motion planning
(finding a collision-free motion between two placements of a
given robot among a set of objects). Configuration spaces show up
in multidimensional billiards (describing the periodic
trajectories of a mass-point in a domain in Euclidean space).
Information about the structure of the cohomology ring translates
into bounds on the complexity of the motion planning problem, or
bounds on the number of periodic trajectories. Thus, finding fast
algorithms to compute algebraic invariants associated to
arrangements and configuration spaces could have real world
applications. The problems the investigators study are also well
suited to introducing graduate (and undergraduate!) students to
research and the use of computational tools. Students conduct
computational experiments, discover patterns and the structure of
the problem, and thus have motivation to learn new theoretical
tools.